Molecular Recognition in the Gas Phase: Rates, Structures, and Energetics Without Solvents or Counterions

This grant from the Organic Dynamics Program supports the work of Professor Dearden at the University of Texas at Arlington. The study will investigate the intrinsic molecular recognition properties of crown ethers and related ligands for metal and molecular ions in the gas phase using ion cyclotron resonance and tandem mass spectrometric techniques. The specific areas concern (a) the identification of chemical systems which exhibit recognition effects, (b) the measurement of host-guest affinities, and (c) the investigation of the rates and mechanisms of gas phase recognition reactions. Subtopics that will be studied are (a) the effects of varying the cavity size and the number and types of ligand donor atoms, (b) intrinsic reactivity of naturally occurring ionophores, and (c) chiral recognition in ion-molecule reactions. %%% The results from Professor David D. Dearden's gas phase study on the interaction between crown ethers and metal/molecular ions will complement data available on molecular recognition in solution and will thereby enable the differentiation between intrinsic and solvent effects. The study also addresses chiral recognition and includes naturally-occurring, biologically-active ionophores (molecules facilitating ion transport through membranes). The outcome of this research will enable an identification and characterization of cage-type reagents which react selectively on the basis of size and shape.